Acquisition of an Fourier Transform-Raman Spectrometer

9503909 Martin This spectrometer will be used by six research groups in the departments of Materials Science and Engineering, Chemical Engineering, and Chemistry at Iowa State University, and in the Physics Department at Coe College. Currently supported research projects on chalcogenide and oxide glasses, amorphous and polycrystalline thin films, polycrystals, crystals, and photosynthetic systems will benefit from increased speed in data acquisition, dependability, reliability, and ease of use with this new system.